Presidential Young Investigator Award: Cost Effective Screening Techniques for Automated Inspection Systems

This research is directed towards developing cost-effective screening (complete inspection) procedures for use in automated inspection systems for high-volume production. Several important techniques are involved, such as using screening procedures for incoming material inspection and vendor evaluation, designing the economic inspection precision level, and using a correlated variable in lieu of the quality characteristic of interest in screening when the inspection on the quality characteristic is destructive, too costly, or time consuming. The procedures developed can be easily implemented by a microcomputer or included in the software operating quality information equipment. Research results will be integrated into a total quality control information and decision support system for automated manufacturing systems.